Doctoral Dissertation Research in Geography and Regional Science

The relationship between paleotopography and modern morphology is necessary to understanding the formation of barrier islands and lagoons, two of the most critical environments along the U.S. coastline. This doctoral dissertation project will study the processes of barrier island lagoonal development on the southern Delmarva Pennisula of the eastern shore of Virginia. It will examine the implications of those processes for barrier coastline development. Pollen, grain size, microfossil, and x-ray radiography analyses will be used to develop a clear picture of the nature of the topography before the spread of the sea over the area and of the timing of the inundation of the surface. This project will generate valuable information about barrier island evolution by increasing our understanding of the position of present coastal morphology in the continuum of Holocene coastal change. By adding to our knowledge of this evolution, this project will contribute to our ability to deal with the potential increase in the complexity of the management of these coastal environments should the sea-level change. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.